ADVANCE Catalyst: Transitioning from Anecdotal to Data-Driven Approach for Institutional Change at the University of Toledo

The University of Toledo will undertake an institutional self-assessment to identify potential organizational inequities (unjust or unfair) policies and practices that result in differential professional outcomes for some STEM faculty. The ADVANCE Catalyst project will result in a five-year STEM faculty equity plan tailored to the University of Toledo context and institutional data that will guide institutional actions to address any issues identified during the grant. The University of Toledo is located in rural Northwest Ohio, and challenges with recruitment and retention of STEM faculty are persistent.

The institutional self-assessment and five-year strategic plan will set a foundation to improve equity for STEM faculty at the institution. This work will benefit STEM disciplines as well as non-STEM disciplines due to the interconnected nature of institutional policy. Results of the Catalyst project will be regularly communicated with the University of Toledo community. The project is expected to add to our understanding of STEM faculty equity issues at a rural university.

The NSF ADVANCE program is designed to foster gender equity through a focus on the identification and elimination of organizational barriers that impede the full participation and advancement of diverse faculty in academic institutions. Organizational barriers that inhibit equity may exist in policies, processes, practices, and the organizational culture and climate. ADVANCE "Catalyst" awards provide support for institutional assessments and the development of five-year faculty equity strategic plans at an academic, non-profit, institution of higher education.